Properties of solutions of linear and non-linear hyperbolic equations, singular Fourier integral operators, averages over curves

Singular integral operators is a vast modern branch of Analysis, which
now attracts many strong analysts. Particularly intense development
for the last several years has been in the field of averaging
operators and Fourier integral operators associated to singular
canonical relations. Andrew Comech obtained several general results in
this field; in particular, the classification of singular canonical
relations and regularity properties of the associated Fourier integral
operators in the Sobolev spaces. The approach was based on
incorporating certain curvature assumptions into the modern tools of
Harmonic Analysis. Among the applications of these results are the
regularity properties of the Radon Transform of Melrose-Taylor and
smoothness of restrictions of solutions to hyperbolic equations. In
both cases Andrew's methods lead to the optimal conclusions. The
future research is aimed at the properties of solutions to non-linear
hyperbolic equations, such as long-time behavior and soliton
asymptotics of solutions to nonlinear hyperbolic equations. Questions
from the very foundations of Harmonic Analysis, which are related to
the proposed research, include the regularity properties of the
averages taken over lower-dimensional varieties (most importantly,
averaging operators over curves).

Andrew Comech is going to continue his research on the wedge of the
two fundamental mathematical fields: Harmonic Analysis and the Theory
of Hyperbolic Equations. The research grows far into the modern
development of the mathematics, being intimately related to nonlinear
differential equations, attractors, and solitons. On the other hand,
the research has its roots deep in the natural sciences and technology.
Particular interests of Andrew Comech are related to the properties of
nonlinear wave equations of relativistic Quantum Physics, which are
now widely investigated both in Physics and in Mathematics. Not less
interesting are the opportunities open due to applications to Tomography,
as well as aspects of numerical computations involving Fourier Analysis.
These are active and promising areas of today's scientific research.